IUCRS: Support for an Evaluator

This proposal provides funds for an evaluator to study the industry/university interaction occurring at the New Jersey Institute of Mining and Technology's Industry/University Cooperative Research Center for Hazardous and Toxic Substances. The three year study will collect data from the researchers, students and industry members; maintain a historical profile of the Center; and serve in a liaison function between all participants in the Center. The Program Manager recommends New Jersey Institute of Mining and Technology be awarded $24,000 in a three-year period.